A Time-Series Study of Ocean Climate in the North Pacific Subtropical Gyre

0117919 Lukas

This project focuses on observing and understanding ocean-climate related processes in the North pacific subtropical gyre by conducting two additional year of hydrographic sampling at the Hawaiian Ocean Time-Series (HOT) to extend the record to 15 years. This work also support the biogeochemistry research component of HOT. The analysis of the time series will seek to improve our description of ocean climate variability by combining observation from HOT with numerical models to understand the causes of this variability. In particular, the subduction process at the subtropical front will be studied in relation to water mass variability observed at the HOT site, including surface layer variations due to air-sea interactions. This project will also contribute to the Climate Variability and Predictability (CLIVAR) Program.